Mathematical Sciences: Representation Theory and Differential Geometry

The research entails the geometric aspects of Lie group theory to fundamental problems in quantum field theory and other branches of mathematical physics. One particular component of the research applies to the structure of the recently discovered Carbon-60 molecule (Fulerene). Such investigations will have potential applications to materials theory and molecular chemistry.